Analytic methods in arithmetic geometry

The investigator proposes to explore in depth questions
about the behaviour of the reductions modulo primes of
abelian varieties and Drinfeld modules by means of analytic
methods. Her motivation comes from conjectures formulated by S. Lang and H.
Trotter (in the context of elliptic curves) in 1976, which, in turn,
are related to classical open questions about prime numbers.
The investigator's main research projects turn out to be
related to a number of central problems in arithmetic geometry
and analytic number theory. A coherent formulation of the main
questions emerging from these projects, together with approaches
and results towards their resolution, will contribute to the
advancement of higher-dimensional analytic methods and their impact
on arithmetic geometry.

This is research in the field of number theory. The central objects
of study in number theory are, basically, prime numbers and Diophantine
equations. The research done under this award concerns properties
of prime numbers with additional interesting properties coming
from geometric contexts. Apart from the intrinsic interest in these
objects, their study has become even more appealing over the past
years thanks to practical implications for cryptography and coding
theory.